Engineering Research Center for Advanced Combustion Research

The Advanced Combustion Engineering Research Center is a joint venture between the Brigham Young University (BYU) and the University of Utah. The Center will develop and transfer fundamental engineering knowledge and tools aimed at the solution of critical national combustion problems, with initial emphasis on utilizing low cost fossil energy resources and alleviating their associated environmental problems. The research will increase the fundamental knowledge base which can now be enhances with new types of diagnostic instrumentation interacting with new computational resources. The educational objectives are integrated with the research plan. Undergraduate options in fuels and energy utilization within the Chemical Engineering Departments at both universities are planned plus a formal graduate minor in combustion engineering offered within the Chemical Engineering Department at BYU. New courses will be developed. A continuing education program will be part of the education program. Undergraduates will actively participate in the Center.